Computational Neuroscience

As neurobiological data accumulate and better methods are devised for extracting anatomical and physiological information about nervous systems, a profoundly difficult problem remains: how can we use what we know to explain higher functions in terms of neuronal networks? What are the dynamical principles which yield complex effects from the behavior of individual neurons? Theoretical approaches are underway in various places, and one striking and important development in this context is the connectionist strategy. Combined with serious neurobiological constraints, this has engendered a new enterprise--computational neuroscience. Dr. Churchland in collaboration with Dr. Terrence J. Sejnowski, is seeking to provide a panoramic view of the theoretical task and give a unique integration of material from neurobiology, psychophysics and computer science. They will explore the computational strategies used by human and other nervous systems, presenting detailed examples of promising computational results, of the limits of the models, and of problems remaining. The project is on interest both for the neurosciences and philosophy of science. Philosophically, the principal interest concerns the role and character of representations and computations in neural network theories, and in the emergence of reductive explanations.